Regional Employer-Education Partnerships to Attract Women into Engineering

The objective of this project is to increase access to engineering careers for women students. About 25 women high school graduates between the ages of 25 and 45, who are employed in jobs below their potential capabilities, are enrolled in engineering programs at the University of Tennessee Chattanooga on a part-time basis. Their employers are partners in the project and provide opportunities for employees to observe science, engineering and technically related activities. The women are enrolled at the University in a seminar for beginning engineering students and participate in enrichment activities which emphasize academic involvement, careers, professionalism, communications, social interaction and motivation. At the end of this period, students who have demonstrated aptitude will be encouraged to enroll in engineering curricula structured for part-time students. This project gives women students a sense of community and involvement in engineering-related activities.